ITR: A Scalable Enabling IT Infrastructure for Developing Countries

EIA- 0326582
Brewer, Eric
University of California-Berkeley

Title: ITR: A Scalable Enabling IT Infrastructure for Developing Countries

We propose to initiate a program, ICT4B (Information and Communication Technology for Billions), aimed at making the benefits of ICT available and useful for all areas of the world. Our interdisciplinary team will focus on developing a hardware/software infrastructure explicitly designed for the physical, political and economic realities of developing areas.
The transformative potential of ICT creates new kinds of opportunities to gain leverage on development problems that have been intransigent. The potential lies within the tools that ICT provides to all economic and political sectors. These tools can affect every activity in which organization, can be achieved across a wide range of industries and public enterprises. Most important, they drive economies in the broadest sense of that term. Using ICT to challenge suboptimal institutions and particularly corrupt and inefficient "markets" provides a rare chance to fashion new, socially beneficial equilibria that contribute to the broader development goals of countries and goals.